CAREER: Taming the size, complexity and longevity of OS kernels via enhanced OS kernel extensions

Operating system (OS) kernels are the most fundamental software
component society depends on, underpinning the computing industry,
from the clouds and datacenters that manage our data to the smart
phones and other devices we all use daily. Unfortunately, they have
grown to be complex and have not kept pace with advances in
programming languages and modular software design, instead struggling
to meet modern security and reliability threats to our computing
infrastructure. Moreover, there appears to be no clear path to
incrementally evolve them and their unchecked complexity has become a
significant barrier to entry for students and practitioners to learn
or innovate at the kernel level. This project seeks to remedy this
issue by create a safe kernel extension framework within the legacy OS
kernel that enables it to be replaced in part or in its entirety with
safe components. Through this extension framework, the project will
enable a practical, incrementally-adoptable mechanism for
undergraduate, graduate students and practitioners to evolve kernels
to be safer and more reliable, improving national security and leading
to higher productivity for society and the national economy.

This project aims to achieve three goals for the OS kernel: security
and robustness through language safety, robustness and incremental
update through componentization, and practical relevance through
building upon existing kernel extension frameworks. The key insight in
our approach is that a safe kernel extension framework can be created
within the legacy OS kernel that enables any part of it to be replaced
via bypass extensions, evolving the kernel towards a safe,
componentized architecture, or in its entirety with a safe and
specialized in-situ kernel. Our integrated research and education
plan involves three broad research thrusts. First, we will explore
expressiveness/safety tradeoffs for kernel extensions, and will design
a new Rust-based kernel extension environment that provides similar
safety guarantees with a more expressive programming environment than
the popular eBPF kernel extension framework in Linux. Second, we will
explore to what extent our enhanced safe kernel extensions can replace
individual kernel components with bypass extensions and explore new
component boundaries in Linux. Finally, we will explore to what extent
an entirely new in-situ kernel can be created from extensions,
ultimately in the context of Linux. Our educational plan integrates
the research in courses and other initiatives involving open source
and industry.